U.S. GLOBEC: Copepod Population Biology On George's Bank - A Component Of U.S. GLOBEC: Ichthyoplankton And Zooplankton In The George's Bank Region

9317506 Miller Dr. Miller will participate in the management and data analysis of the GLOBEC Georges Ban Broad Scale Survey. This will include (1) work on the formation and management of the Georges Bank Plankton Technical Group (GBPTG) at Woods Hole, and (2) studies of the population biology of Calanus finmarchicus, Pseudocalanus moultoni, and Pseudocalanus newmani using the very large sample set to be collected by the Broad Scale Survey. In specific studies of copepods he will use the broad scale survey preserved sample set, plus specially preserved samples and subsamples, to examine aspects of C. finmarchicus and Pseudocalanus spp. life history, growth, and production biology as functions of season, temperature and stratification, location over or off the bank, food availability, and hydrography. Goals will include comprehensive estimation of secondary production by C. finmarchicus and Pseudocalanus spp. to allow comparisons among seasons, years, and sites across Georges Bank.